Analytic and Computational Approaches to Tackling Uncertainties in Spatio-Temporal Systems

ECS-9711590 Bose Robustness property is crucial in the performance evaluation spatio-temporal systems used to process analog video signals, multidimensional transform-based coding and in multidimensional filtering for picture quality improvement. This project will promote collaboration between the scientists in Mexico who are developing constructive methods for the robust stability analysis of nonaffine families of multivariate polynomials and their counterparts in U.S.A. who will be involved in, first, obtaining generalizations to the multidimensional case of their deterministic and probabilistic approaches to, respectively, the robust wavenumber response and worst-case robust stability analysis problems and, second, the application of these results in image filtering based on classical as well as neurocomputing.